RIA: Design and Analysis of Efficient Algorithms

Various matching problems in strings, multi-dimensional arrays, and trees are useful in computer science and related disciplines. A well- studied problem is the exact matching problem, which is to find all occurrences of a pattern in a text. However, exact matching is only a special case. Scientists in all fields often need to analyze situations where the data is not completely reliable. The first goal of this project is to find efficient serial and parallel algorithms for the "inexact" matching problem. Following the technological developments of the past decades we reached the point where the speed of hardware components is very close to the physical lower bounds. Thus, it seems that the most feasible way to increase the speed of computations substantially is by making them more efficient. Inspired by this perception this project will also focus on the following interlacing aspects of computation theory: design of efficient parallel algorithms that work on an abstract machine model known in the literature as PRAM, and design if efficient distributed algorithms for various network models.